Improving and Modernizing Instrumentation for the Advanced Laboratory

The advanced laboratory sequence serves students having a variety of final goals; graduate school, industrial employment and teaching. Accordingly, a wide variety of experiments and teaching modes are used in this sequence. To ensure the quality of this sequence in a context of rapid developments in modern instrumentation, we must add experiments that expose the students to measurements which: (i) produce large volumes of data requiring detailed analysis, (ii) are examples of modern technologies, and (iii) require more than a perfunctory interaction with computers. Purchase of rf equipment and digital oscilloscopes will enable pulsed NMR and second-sound experiments to produce large-volume, high-quality data. Purchase of fiber optics components and certain accessories for an existing high-vacuum thin film evaporator will enable the development of experiments illustrating aspects of the modern technologies of fiber optics, thin film fabrication and thin-film properties, and vacuum techniques. Purchase of PC's will permit the automation of some experiments, the introduction of Fourier transform techniques, and increase student access to data analysis facilities. Purchase of logic analyzers permits a critical examination of experiment-computer interfacing requirements.